CAREER: Teacher Knowledge, Beliefs, & Technology: Constructing Models of Change in Systemic Reform

This proposal describes a program of research to explore the relationship
between the knowledge, beliefs, and attitudes held by middle school science
teachers with respect to inquiry-based science with embedded learning
technologies and their classroom practices with those technologies. At its
heart, this research is about the study of teacher change. The teachers
who will participate in this work are part of a large-scale systemic change
initiative in the Detroit Public Schools, conducted jointly by the
NSF-sponsored Detroit Urban Systemic Initiative (DUSI) and the Center for
Learning Technologies in Urban Schools (LeTUS). In that context, the
teachers are all learning how to teach with new curriculum materials and
technology, and they receive a broad range of professional development to
support them in this learning.

To become successful with inquiry-based and technology-enhanced curricula,
teachers will need to learn new science content (content knowledge); they
will need to learn new methods for organizing their classroom (pedagogical
knowledge); and they will need to learn new techniques for teaching
particular kinds of content, such as the use of modeling tools to help
students construct an understanding of how burning coal from factories
combines with air to create acid rain that impacts the environment
(pedagogical content knowledge). Teachers' attitudes toward technology
need to change, and their beliefs in their own self-efficacy with
technology and new science material needs to improve. DUSI and LeTUS
attempt to help teachers change along these dimensions through activities
that include cognitive (providing evidence for the feasibility and benefits
of using new approaches), social (learning and sharing with colleagues),
and contextual (providing evidence for the support of the system)
mechanisms for change. There is little understanding at the present time
as to how these aspects of change work either separately or together to
foster the use of technology in science teaching.

The main questions that this research asks are:

1) What are teachers' knowledge, beliefs, and attitudes with respect to
teaching science with technology, and how do they change over time?

2) What are teachers' classroom practices with respect to technology, and
how do they change over time?

3) What is the relationship between teachers' knowledge, beliefs, and
attitudes and their classroom teaching practices with technology, and how
does this change over time?

4) How do professional development activities influence changes in
teachers' knowledge, beliefs, attitudes, and practice over time, and how
might those activities be re-designed to foster desired changes?

This research is designed to complement a program of instruction in the
Educational Technology program at the University of Michigan. Students in
this program will approach the study of technology in K-12 settings from
the perspective of teachers' technology use and cognition. The research
also serves and as a setting for graduate students to conduct their own
investigations.

There are immediate practical benefits of this work for teachers in
Detroit, where the results of the research will be used to re-shape
professional development activities to more directly address their needs in
reform.